Conference on the Foundations of Mathematics; Spring 2009, Columbus, Ohio

This conference will be notably interdisciplinary. The 36 speakers include leading set
theorists, model theorists, proof theorists, reverse mathematicians, computer scientists
and philosophers of logic and of mathematics. The quality of the program can be inferred
from just the list of plenary speakers: Martin Davis, Solomon Feferman, Saul Kripke,
Anil Nerode, Gerald Sacks, Patrick Suppes and Albert Visser, The complete tentative
program can be seen at
http://people.cohums.ohio-state.edu/tennant9/program_new.htm
The lists of titles and abstracts received thus far can be seen at
http://people.cohums.ohio-state.edu/tennant9/titles_and_abstracts.html
The conference will be a key opportunity for foundationalists to learn about and discuss
important advances in research, to exchange ideas, and to collaborate on scientific
projects. Travel grants will allow graduate students and young researchers to come to the
conference. Most of the participants will be research mathematicians and university
teachers. What they learn at the conference will have a positive impact on their research
and teaching.